Plasma Fluidized Bed Reactor for Plasma-Solid Reaction Studies

The interaction of plasmas with fluidized beds is of great interest for mass transformation of solid particulates. Long residence times are available and extensive exposure can be established until chemical reactions with the ionized medium are completed. As an example, such reactions involve high frequency discharges over a wide range of pressures and power density, for the purpose of alumina reduction or silicon carbide deposition. This capability should lead to an understanding of a variety of interesting industrial processes: powder processing, ceramic synthesis and deposition, electronic materials manufacturing.